Innovations in Multiphase Flow - An International Fluid Mechanics Symposium

9406941 K.Chen Partial support will be provided for approximately 12 invited speakers to a symposium on innovative techniques recently adopted in multiphase flow and thin film research. The meeting will have a total of about 50 participants, and will be held on March 26-27, in Minneapolis (MN). Theoretical approaches, non-intrusive measuring techniques and parallel computing developed in the last years offer new tools for improved methods of investigations, which would have been not possible only few years ago. The purpose of this interdisciplinary symposium is to provide a timely forum for presenting the latest developments in multiphase flow and thin film research, to highlight outstanding scientific results, set directions for future research opportunities with the highest return, and promote interactions among researchers in fluid mechanics, particles technology, heat transfer, applied mathematics, chemical and mechanical engineering. Senior and young researchers from several countries have been invited to this symposium. The University of Minnesota offers a stimulating environment through its research groups and well established laboratories in this field of research. The presentations at the workshop will be peer reviewed and published in a special issue of the journal on "Theoretical and Computational Fluid Dynamics." ***